Dynamics of Transmitter Receptors in Neuronal Membrane

The function of the nervous systems depends on the signaling of nerve impulses across the nerve cells at a structure called synapse. A group of molecules in the membrane of the receiving post-synaptic nerve cells, the transmitter receptors, are responsible for receiving the chemical signals from the pre- synaptic nerve cells. The metabolism, mobility, and the distribution of these receptors determine the efficiency and stability of the signaling at the synapse. The purpose of the present project is to examine when the glutamate receptors are synthesized in the developing nerve cells, how do they become segregated into different regions of the cell membrane, how their distribution at the synapse become concentrated as synapse matures, and whether the concentrated distribution can be further modified by the use of the synapse. The result from this study will help us to understand the role of transmitter receptor dynamics in the synaptic functions as well as in the disease states, during embryonic development and in adult life.